Joint Program on "Nature, Technology & Human Understanding

The National Science Foundation (NSF) and National Endowment for the Humanities (NEH) joint program `Nature, Technology and Human Understanding` fosters public attention to the interrelations of science, technology, and the humanities. This award transfers funds to the National Endowment for the Humanities (NEH) in support of this effort. The funds will be used for public programs sponsored by several of the NEH State Humanities Councils.